TRAVEL SUPPORT FOR PARTICIPANTS OF PROGRESS IN DYNAMICS

This award provides support to defray expenses of US-based researchers participating in the international conference "Progress in Dynamics," which will be held at the Institut Henri Poincare in Paris from November 23-27, 2009. Most of the funding will be directed to graduate students, postdocs, and junior faculty, but certain senior participants may be funded as well.

The conference will cover a wide range of topics, touching upon virtually all the active areas in dynamical systems and ergodic theory. A unifying theme threading its way through the meeting's program is the impact of the work of Anatole Katok on the field. The format of the conference provides ample opportunity for young mathematicians to present their work and otherwise to participate fully in conference activities.